Key Issues in the Estimation of the Impacts of Greenhouse Gas Control Strategies

In response to the marked interest in global climate change over the past few years, the Energy Modeling Forum (EMF) at Stanford University initiated a multi-year study focusing primarily on the likely energy sector impacts (costs and fuel mix effects) of initiatives that would constrain greenhouse gas emissions. Like previous EMF studies, this effort is geared to understanding what the current set of models can contribute to understanding the nature and costs of these impacts as well as the comparative strengths and weaknesses of the various modeling paradigms that are currently being used to help develop policy in this area. Since the focus of this study is on providing information that can improve policy making over the next few years, it is largely being funded by applied-research oriented organizations like the Department of Energy, the Environmental Protection Agency, the Electric Power Research Institute, and a group of leading domestic and international companies. The contribution of this project comes in carefully linking what comes out of this study to basic research needs in the social sciences. This project will tie the key policy analysis issues identified during the study directly to the type of basic social science research that NSF has and will continue to support. The preliminary conclusions regarding the implications of the EMF study for research priorities will be summarized in a report and the report will be discussed at a workshop convened by the EMF. More specifically, the linkages between the more application- oriented main EMF study and this project would include an assessment of the relevant merits of additional basic research on such topics as demographics, economic growth determinants, structural shifts in economic activity, the determinants of energy demand, technical change, and the private sector R&D response to price changes and policy implementations to the key policy issues in global environmental change.